BMAT: Self-assembly of extensin glycoproteins for designing novel plant-based biopolymers

Non-technical summary
All living creatures on earth are made of cells. Each cell is enclosed by an extracellular
matrix. You can think of an extracellular matrix as a housing that protects and contains
a cell’s contents. In plants, that housing is particularly strong and rigid and is composed
of a wide variety of biopolymers. One such polymer is known as extensin. As its name
implies, extensin plays an important role in controlling plant growth and extension, and
it does so by forming a polymeric molecular scaffold or frame. This work aims to
understand what governs scaffold formation at the molecular level and how we can use
this knowledge to design new biopolymers that mimic or imitate the properties of
natural extensins. In the face of global climate change, our reliance on fossil fuels must
be reduced, not only for use as transportation fuels, but also as chemical/polymer
feedstocks. Potential industrial applications of this research are numerous and include
the creation of biodegradable plastics, molecular electronics, food enhancement,
cosmetics additives, etc. This research will also provide training opportunities for
undergraduate and graduate students in biophysical chemistry and biochemistry. New
undergraduate course materials for physical chemistry and biochemistry will be
developed, and various outreach and scientific literacy projects for primary/secondary
school aged children and adults are planned.

Technical summary
Extensins (EXTs) are network-forming hydroxyproline-rich glycoproteins found
naturally in plant cell walls. Monomeric EXTs self-assemble to form insoluble polymeric
cell wall scaffolds. Very little is known about what governs EXT self-assembly at the
molecular level. Atomic force microscopy (AFM) has been previously used to explore
the behavior of EXT self-assembly. These studies showed that EXT monomers
spontaneously self-assemble into intricate dendritic scaffolds. Furthermore, different
EXT types displayed different self-assembly behaviors, whereby some EXTs favored
more xy-plane growth (termed ‘branching’), while others displayed z-plane growth
(termed ‘stacking’). These changes were attributed to differences in the repetitive,
modular, and amphiphilic nature exhibited by different EXTs. To better understand the
molecular drivers of EXT self-assembly, three objectives are proposed. First, will be
further characterize the self-assembly of native EXT glycoproteins by AFM to study
their kinetics, pore sizes, and relative growth in the x-, y-, and z-planes. Synthetic
biology will then be used to create biomimetic EXTs that vary in amphiphilicity,
modularity, and repetitiveness and test for their self-assembly behavior using AFM.
Lastly, the biochemical and biophysical properties of synthetic self-assembled EXTs will
be characterized and compared with a focus on monomer adhesion strength and
polymer flexibility. Elucidating the molecular rules that govern EXT self-assembly is
expected to facilitate the rational design of synthetic, plant-based biomimetic
biopolymers.